Combined Source Coding, Channel Coding and Modulation for Bandwidth Efficient Communications

This research addresses the integration of source coding, channel coding, and modulation. The first part of the problem is to map the samples of the source into a code that minimizes the distortion and tries to maximize the minimum distance between code words. The second part of the problem is to find a suitable modulation scheme that is matched to the code and uses the bandwidth efficiently. Performance measures that reflect the performance of an overall system are developed. The performance of combined source and channel code using permutation codes, which have been used independently for source coding and for channel coding, will be considered. Initially permutation modulation is considered in the design and analysis of the combined system. Next two approaches are considered for coded modulation: signal sets derived from generalized (optimal constant weight codes), and the use of combinatorial and geometric structures to generate signal sets enabling the realization of multi-dimensional modulation schemes through frequency, phase, and amplitude shift keying, or combinations.